Research-Oriented Workshops in South America; LaPlata, Argentina, Dec. 7-11, 1992 and Sao Paulo, Brazil, December 14-16, 1992

This U.S.-Brazil Cooperative Science Program award supports travel expenses of R.A. Young, Georgia Institute of Technology; R.B. Von Dreele, Los Alamos National Laboratory; and A.K. Cheetham, University of California at Santa Barbara, to organize and participate in two research workshops on the Rietveld method, in La Plata, Argentina December 7-11, 1992, and in Sao Paulo, Brazil December 14-16, 1992. The Brazilian co-organizer is Yvonne Mascarenhas of the University of Sao Paulo; the Argentine co- organizer is Graciela Punte of the University of La Plata. The Rietveld method is a powerful new tool for extracting detailed crystal structural information from X-ray and neutron powder diffraction data. Since such structural details dictate many physical and chemical attributes of materials, knowledge of them is crucial to understanding, modifying, and creating materials that have properties needed for specific uses. The Rietveld method plays an important role in research on the crystal structural origins of HTc superconductivity. Each workshop will include 35 mostly junior local and regional participants. The South American participants will acquire an important method for understanding structure-property relationships. All sides will gain new ties for research collaboration on problems of mutual interest.